2011 Applied and Environmental Microbiology Gordon Research Conference

The Applied and Environmental Microbiology Gordon Research Conference (GRC) has been held every two years since 1950 and is one of the longest running of the Gordon Conferences. The focus of the 2011 Conference is microbial functional interactions from the level of molecules to biomes. This theme will be explored in sessions on bacterial evolution and speciation, microbial interactions and population dynamics, the roles of microbes in ecosystem functioning, the biogeochemical cycling of naturally occurring and hazardous substances, microbially mediated redox processes, and methodologies to assess the functional relationships of microorganisms in their habitats. Diverse ecosystems will be featured and genomics, engineering, and commercial applications of the metabolic powers of microbes will be covered in the various sessions. The conference will bring together leading experts in the field to present and discuss new, fundamental research findings on microorganisms, their activities in the environment, their ecosystem-level effects, and their environmental and/or commercial applications. The intimate size of the conference encourages dialog and exchange of ideas - even between students and senior scientists. The number of young scientists (graduate students, postdocs, and junior scientists) that attend the Applied and Environmental Microbiology GRC meeting has steadily increased. The aim of this award is to further improve on this trend. To accomplish this goal support form NSF is specifically targeted to assist participation of students and young post-doctoral scholars. An important aspect of the Applied and Environmental Microbiology GRC is that for most sessions a young “and upcoming” speaker will be selected from the Abstract submissions for a short talk. Furthermore, the poster sessions are also lively and organized to stimulate discussions that carry through the week.

The long-term success of the Applied and Environmental Microbiology GRC is based not only on the quality of the individuals who have served as organizers and participants, but also on the fundamental importance of microorganisms to life on Earth, the environment, various industries, and human health. The conference has always had a diverse theme of topics, covering the metabolic, physiologic and evolutionary diversity of microbial life, the complex roles that microorganisms play in life on Earth, and the multitude of applications of microbes in biotechnology, the food industry, agriculture, and medicine. Global change, production of greenhouse gases, remediation of contaminated ecosystems, water quality, the biological cycling of elements, and the symbiotic relationships of microbes that affect agricultural production and our own health are just a few of the areas covered by the conference that have a profound impact on society. The conference series has in the past been a forum for the consideration of critical or even controversial issues that have led to the development of new technologies. In the typical Gordon Conference style, the Conference sessions will be informal, off the record, and open to all participants for the expression of their views. The Applied and Environmental Microbiology GRC has a long record of stimulating advanced research in industrial laboratories, colleges and universities, research foundations, and government laboratories.